Neurobiology of Circadian Rhythms

The mammalian suprachiasmatic nucleus of the hypothalamus is the anatomical substrate for a circadian biological clock that controls many overt rhythms in physiology and behavior. The mechanism(s) responsible for the generation of circadian rhythmicity by the suprachiasmatic nucleus is (are) unknown. It is known, however, that the ability to generate action potentials is not necessary for the workings of the circadian clock. Therefore, other forms of intercellular communications must mediate circadian-rhythm generation. Dr. Nunez will examine the possibility that the interaction between neurons and glial cells of the suprachiasmatic nucleus is critical. Using electronmicroscopy, he will determine whether plasticity in glial cell morphology over the circadian cycle impacts on inter-neuronal communications and, thus, impose circadian rhythmicity on the neural outputs of the suprachiasmatic nucleus. The concept of biological timing rivals that of homeostasis as an organizing principle in contemporary biology. Understanding the basic neural mechanisms may lead to treatments that could help solve problems caused by jet lag, shift work and sleep disorders in the elderly. Indeed, in so far as circadian rhythm studies will ultimately have an impact on virtually all areas of human endeavor distributed across the seasons and phases of the day, this work may have a direct effect on the nation's scientific and engineering research, education and human resources bases.